Connecting Taft College and Taft High to NSFNET

9312117 Brettschneider This project connects Taft College and Taft Union High School to NSFNET through California State University, Bakersfield, and CSUnet over a 56 kbps line. Faculty and students will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years. ***